(RI+hcc)-Small: Computational Social Choice: Aggregating Preferences in Combinatorial Domains

In traditional social choice, it is assumed that each agent explicitly ranks all of the alternatives. In Artificial Intelligence applications this is generally impractical: for example, there are exponentially many joint plans
or allocations of tasks/resources. Nevertheless, even the computational social choice community has so
far focused primarily on the explicit-ranking model. While this was a necessary phase to establish a solid
foundation for this line of research, it is now time to move on and consider the combinatorial domains with
exponentially many alternatives that motivated computational social choice in the first place. This is what
the proposed research will do.
The PI proposes the following 5-part research plan. First, he plans to study how agents’ votes should
be represented, that is, what language the agents should use to express their preferences in a combinatorial
domain. Once the language has been determined, he plans to study what rule should be used to make a
decision based on the votes. Such a rule would be useless without a good algorithm for executing it, that
is, for solving the winner determination problem. Even with a good language, it may be overwhelming
for an agent to report its complete preferences, so the PI plans to study how to elicit the (relevant parts of)
agents’ preferences by asking the agents simple queries. Finally, he plans to address the problem of agents
voting insincerely to manipulate the decision, in part by investigating whether such manipulation can be
made computationally infeasible.
Broader Impacts
The proposed research will allow agents to coordinate when solving a complex problem, even if they have
been created by different designers with different objectives. For example, robots in search-and-rescue or
other exploration settings can vote over how they will divide the exploration. This allows a much greater
diversity of agents to participate in such a task, undoubtedly leading to better results. Also, some of the
research is likely to be applicable to human decision making.
Europe is starting to take the lead in computational social choice; if funded, this proposal will ensure that
the U.S. retains expertise in and continues to shape this burgeoning research area. Of course, research is not
a zero-sum game, and the PI plans to collaborate closely with the other researchers in the area. In fact, this
proposal corresponds to the PI’s part of a 12-investigator proposal that was just recommended for funding
by the European Science Foundation (ESF). This (NSF) proposal would also support the PI’s collaboration
with Jeff Rosenschein (Hebrew University); for this collaboration, Jeff and the PI already received a small
US-Israel Binational Science Foundation grant that serves to support the Israeli side as well as travel.
The proposal also includes plans to develop a new graduate course on computational social choice,
mentor graduate and undergraduate students, build connections to economics and political science, and
attract more women to computer science (as well as participate in other outreach activities).